2014 NSF/DIMACS Workshop for Aspiring PIs in Secure and Trustworthy Cyberspace

This grant funds a one-day workshop for researchers who aspire to participate in NSF's Secure and Trustworthy Cyberspace (SaTC) program. The workshop is open to people with research interests in secure and trustworthy computing who are not currently funded by SaTC or any of its predecessor programs (Trustworthy Computing and/or Cyber Trust). The goal of this workshop is to help aspiring SaTC PIs understand what NSF (and NSF review panels) are looking for in reviewing SaTC proposals, with the goal of increasing the quality of submitted proposals and, in turn, the percentage of proposals funded. The workshop will be held in the same location as the USENIX Security conference, on the day before the conference workshops. Co-locating this event with one of the major research conferences for the field will reduce overall costs for researchers, since many of them will be attending the conference for other professional reasons.